Sodium Transport in Dog Erythrocytes

Sodium transport across the cell membrane is a basic function that plays an important role in several physiological functions such as fertilization, regulation of pH, volume regulation and transmembrane signalling. Dr. Dixon plans to use mature red blood cell from the dog which serve as an excellent model to study both sodium ion transport and sodium ion exchange. The results of the data collected here may provide information concerning the mechanisms of several physiological processes related to transport pathways.//